Synthesis, Structure and Magnetic Transitions in Transition Metal Compounds

It is proposed to continue there research on magnetic phase transitions at low temperatures. Major interest centers on finding new materials which exhibit interesting physical phenomena. The compounds of chromium(III) are interesting, for they complement current studies on the Haldane conjecture. The tetrahaloferrates(III) are a new series of materials with odd stoichiometries which require complete chemical and structural characterization in order to understand their magnetic properties. Bimetallic compounds are of importance because they offer the best way to prepare new ferrimagnets, and also perhaps new ferromagnets. Heavy-metal compounds have been little studied but offer a variety of potentially interesting physical phenomena. Extensive collaborations with others are a major part of the program.